RESEARCH INITIATION: Enhancement of Boiling Heat Transfer by Point-Contact Cavities

This study involves a fundamental investigation in boiling heat transfer. Specifically, the nucleate boiling from a novel nucleation site formed through point or line contact between a foreign object and the heating wall will be studied both experimentally and theoretically.